NGS: Workshop on Manufacturing Software Integration Research: Status and Future Directions

EIA-0116101
Yun Peng
University of Maryland-Baltimore County

NGS: Workshop on Manufacturing Software Integration Research: Status and Future Directions

This workshop is to support travel and registration expenses for invited speakers, and students to attend The Workshop on Manufacturing Software Integration Research. It will be held at NIST and will bring together researchers to discuss systems software issues on supporting the integration of heterogeneous software components, a very important issue in enabling modern manufacturing planning and control support systems.